Analysis of Multiple Cellulases in Plant Cell Wall Processes

The plant cell wall is modified in coordination with almost all
plant developmental processes. Changes in the cell wall are thought to be
mediated by a family of enzymes that break down links in the structural
polymers making up the cell wall, in particular links between glucose
molecules. The enzymes expected to modify cellulose, commonly referred to as
cellulases, are members of this family.
In Arabidopsis the family of cellulases is extensive (more than
twelve members) and is encoded by structurally different classes of genes.
Within the family there are members located at the plasma membrane that are
presumed to act at the innermost layers of the cell wall, and members that
are secreted and are presumed to act at any stratum within the cell wall,
including the outermost layer. Both structural groups have similar
catalytic signatures and homology to Family 9 of bacterial cellulases.
This project has the underlying hypothesis that cellulases anchored
in the plasma membrane play a role in cell wall biosynthetic processes while
those that are extracellular play specific roles in cell wall catabolic
processes that range in activity from partial and localized, to massive and
catastrophic. This range in activity is linked to contrasting functions
like cell growth and cell death, respectively. For all Arabidopsis
cellulase genes nothing is known about their true in vivo substrate, mode of
action and to what extent they can act on cellulose or other beta-1-4 glucans.
To better understand the role of cellulases in plant development,
genetic and molecular studies are proposed to investigate how gene
expression and enzyme levels are modulated during shifts between different
cellulase functions for three structurally distinct Arabidopsis cellulase
genes: a putative membrane-anchored cellulase Cel6.1.1, a putative
secreted, auxin-stimulated cellulase Cel5.1.1, and a putative abscission
cellulase Cel115L. The comparison is significant since it is believed that
the major cell wall changes occurring in processes of growth and expansion
take place in the innermost layer of the cell wall. It is anticipated that
cellulases involved in growth will be up-regulated during growth and
down-regulated during cell wall disassembly, and vice versa for cellulases
involved in cell wall disassembly
The experimental system to be used for these studies is Arabidopsis
hypocotyl growth in which contrasting functions of cellulase are manifested
in different developmental stages of the same tissue. These functions
include longitudinal and radial growth, cell separation and cell death.
Hypocotyl growth will be compared among wild-type plants, morphological
mutants that are defective in lateral or longitudinal growth but are not
defective in cellulase genes and T-DNA insertional mutants (knock-out
mutants) that are predicted to be defective in a particular cellulase gene.
Knock-out mutations may change the shape or other characteristics of the
plant consistent with the mutated genes hypothesized function and will
provide strong evidence for cellulase function.